Nondestructive Surface Detection of Cartilage Degeneration

This work is to continue basic studies to develop new technology for the early detection and characterization of cartilage degeneration. The method relies on previous findings that electrical current introduced via surface electrodes produces a measurable stress, and that this stress varies as a result of chemical degradation of the cartilage. Different frequencies of current and spacial arrangements of active electrodes will be used in order to localize the site of degeneration in 3 dimensions. If successful, this cross-disciplinary research will result in a new research tool to study cartilage degeneration; the results may also prove useful for the early clinical detection of degenerating cartilage.